CEDAR: Sondrestrom Data Acquisition and Radar System Improvements for CEDAR

The object of this proposal is to upgrade the computers and radar hardware at the Sondrestrom Facility. The PIs feel this will better enable the use of a data-acquisition system that provides greater flexibility in radar operating modes. In addition, the PI proposes to extend the capabilities of the data-acquisition system, improve the radar circuits that limit existing operating modes, and extend the facility computer power to allow on-site data reduction with fitting software.